LA-BRIDGE: Louisiana Broadening Resources for Increasing Diversity in Graduate Education at Louisiana State University

The US Census Bureau reports that African, Hispanic, and Native Americans comprise some
30% of the US population, however only 16% of the undergraduate science, technology, engineering, and
mathematics (STEM) degrees and less than 3% of the doctoral STEM degrees produced within the US are
awarded to students from these groups! It is in the nation’s best interest to support innovations that test
strategies to increase the success groups underrepresented in the STEM disciplines, not simply for reasons
of equity or social justice, but because these students are an untapped potential in fulfilling the STEM
workforce needs of today and tomorrow.
The proposed, “BD-Cohort 5 ? LA-BRIDGE: Louisiana Broadening Resources for Increasing
Diversity in Graduate Education,” represents a transformative and strategic institutional approach to
build human resource capital at the doctoral level. In this endeavor, Louisiana State University (LSU), a
state-supported Carnegie Research Extensive Institution, nationally designated as both land-grant and seagrant,
will serve as the Bridging Institution. The project features strong inter-institutional collaborations
between colleges and universities throughout the Senior Level Louis Stokes (LS) Louisiana Alliance for
Minority Participation (LAMP); intra-institutional collaborations between the LSU Offices of Academic
Affairs, Strategic Initiatives, and Research and Economic Development as well as the LSU Center for
Academic Success; and international collaborations between LSU and the French Alternative Energies
and Atomic Energy Commission in Grenoble (CEA Grenoble).
The vision of LA-BRIDGE is to create a successful model to increase minority student
persistence and global competitiveness at the doctoral level, an effective model with well-tested
strategies, which can be adopted nationwide. The goals of LA-BRIDGE are a logical extension of the
goals of the LS-LAMP Senior Alliance: (a) to increase the quality and number of minority STEM
students pursuing doctoral degrees at the bridge institution; (b) increase the retention to graduation rate of
minority STEM PhD students; and (c) investigate a national model for increasing the share of minority
STEM PhD holders. The objectives
of LAMP-BD are: (1) to provide systemic mentoring that includes
effective faculty-to-student/student-to-student interactions that work collectively to increase the number
of minorities earning PhD degrees in STEM fields; (2) facilitate academic support structures that increase
students’ acclimations to the rigors of doctoral study; and (3) expose minorities to international research
experiences that prepare them for long-term scholarly engagement in the global STEM research
enterprise; (4) to promote, guide and support the transition of these PhD degree-holders into the STEM
research workforce with emphasis on the professoriate; and (5) to achieve self-sustainability by
expanding, and institutionalizing the systemic mentoring, and research infrastructure enhancements and
activities across the state.
Intellectual Merit: LA-BRIDGE will provide strategic and transformative leadership in
designing effective LS-LAMP inter-institutional and multi-national alliances that improve the quality of
STEM education for PhD students. This project will cultivate and test systemic mentoring strategies that
have been designed to increase minority student matriculation and graduation from PhD programs.
Moreover, the project will explore models to enhance the ability of LSAMP students to be more effective
researchers in a global environment. The scientific basis of the mentoring model and its related activities,
the publication in system mentoring and educational research, lend themselves to the development of best
practices for graduate education and professional development. Further, the research to be conducted by
BD scholars will contribute to scientific and technological innovations spanning the STEM disciplines.
Broader Impact: LA-BRIDGE will increase minority student access to STEM PhDs. The salient
project impacts are a) the increase in the number of high quality PhD level researchers from
underrepresented minority communities who will pursue research careers in the STEM academic,
industrial, and governmental enterprise; b) the consequent contribution to and the development of a more
qualified and diversified workforce; c) the wide-spread dissemination of the best practices of system
mentoring for graduate studies and professional development; and d) the significant enhancement of
institutional graduate education and research infrastructure. Further, this project will benefit society by
enhancing the ability of its graduate students to thrive in an international research environment.